Thermodynamics of Mineral Solutions

The principal objective of the proposed research is to clarify the thermochemistry of Ti-, Al-, and Fe3+ - substituted clinopyroxenes and Ag2S-Cu2S-FeS-ZnS-As2S3-Sb2S3- S sulfosalts/sulfides by experimental, theoretical, spectroscopic, and petrologic studies. Studies of the sulfosalt/sulfide systems will involve evacuated silica tube experiments to elucidate net transport and As-Sb and Ag-Cu exchange reactions. Studies of the pyroxene system will utilize available pyroxene-liquid compositional data from melting and crystallization experiments. The pyroxene study should have significant impact on mainstream petrology as the development of a reliable model for pyroxene thermochemistry is a prerequisite to quantitative modelling of igneous processes such as crystallization and crystal fractionation. The sulfosalt/sulfide thermochemical study is a longer-term effort that will find application in understanding solid (sulfide) - liquid (groundwater, brine, ore-forming fluid) interactions.